U.S.-Asian Workshop on Nonlinear Dynamics and SPDE's

0308601 Lu This is a U.S. -Asian Workshop proposal submitted by Dr. Kening Lu, Brigham Young University, in cooperation with Professor Zhujun Jing, CAS, on nonlinear dynamics and stochastic PDEs. This proposal requests funds to include 6 invited U.S. mathematicians and 6 U.S. graduate students and junior scientists in a seven-day conference on June 21-27, 2003 in Beijing, China. The topic is timely and has significant applications to many physical sciences. The workshop will be jointly support by the Chinese Academy of Science and NSF.